SSC: Summer Science Camp

The three year New Jersey Institute of Technology Summer Science Camp serves seventy-eight seventh grade, low income, educationally disadvantaged African-American and Hispanic students from Newark public schools. The non-residential program is comprised of a four-week summer component with eight follow-up sessions. Instruction is provided in science and math, based on the theme of Marine Science, oral and written communication skills, as well as four field trips to various marine science locations in New Jersey. In addition, students receive academic, financial and career counseling and are exposed to formal and informal interaction with minority and women professors and students already engaged in science based careers. Parents/guardians are involved throughout the program. Project partners include: the Newark Board of Education, the New Jersey Marine Science Consortium and the Protestant Community Center, Inc, a community based parent organization. Follow-up activities will be carried out during each academic year which provide additional math/science opportunities, academic and career counseling, and monitoring of student progress.